NER: Nanochannel Field-Effect Transistors (FETs) and Quantum Dot Based Nonvolatile Memory Cells using Site-Specific and Layer-by-Layer Self-Assembly Techniques

NER Proposal #0210428
PI: Faquir Jain
Nanochannel FETs and Quantum Dot based Nonvolatile Memory Cells using
Site-Specific and Layer-by-Layer Self-Assembly Techniques

Summary

This proposal aims at forming nanochannels (10-30 nm length with ~100nm
width), using SiOx-Si nanomasks deposited via site-specific self-assembly,
to fabricate FETs with enhanced performance. In addition, it seeks to
develop quantum dot based nonvolatile memory cell structures in floating
gate and floating trap configurations. These nonvolatile memory cells are
proposed to be grown using layer-by-layer self-assembly of ZnS-cladded CdSe
or ZnCdSe quantum dots (with core diameter ~3-5nm). The final goal is the
integration of FETs with nonvolatile memory cells to design programmable
circuits.